Relativistic Meson-Nuclear Phyics

The objective is a systematic investigation of relativistic meson-theoretic approaches to low and intermediate energy physics. Topics will include subthreshold pion production in heavy ion collisions, nucleon-nucleon scattering, and relativistic nuclear structure. The aim is to provide complementary information for the discussion of the role of subhadronic degrees of freedom in low and medium energy nuclear physics.